Oceanographic Instrumentation

0710072
Deering
This award to University of Delaware provides support for the acquisition of oceanographic instrumentation to be used on R/V Hugh Sharp, a 146' research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Specifically, support is recommended to acquire an ultra-low temperature freezer for shared-use operation for preservation of marine biological specimens for post-cruise analysis. This acquisition provides an important new capability for marine scientists using University of Delaware's research vessel in their research during 2007 and future years.
***